SBIR Phase II: Three-Dimensional Computational Optical Imaging Sensor

The broader impact/commercial potential of this project stems from the possibility of
obtaining real-time precise 3D depth information using a miniature robust sensor system
opening up a myriad of opportunities for commercial application. Imaging sensors are
now widespread and inexpensive, as is computing power, already an integral part of
most cameras. The 3D imaging sensor to be developed enables disruptive applications
for manufacturing, robotics, human-machine interfaces, unmanned aerial vehicles, and
emerging 3D scanners.

This Small Business Innovation Research (SBIR) Phase 2 project is focused on the
design, development, and testing of a miniature, robust, low-cost optical imaging sensor
system capable of acquiring three-dimensional (3D) information from a scene with high
precision and accuracy, overcoming current state-of-the-art technologies. The sensor
provides, from a single shot, an image and a depth map; associating each object
feature with its precise 3D location. With the advances in sensing technology, 3D
information is increasingly incorporated into real-world applications—from
manufacturing to entertainment and security. The proposed sensor provides
improvements in depth resolution while being fast, compact, lightweight, and amenable
for mass production at low cost.